Modeling Multi-Messenger Signals from Merging Black Holes and Neutron Stars with the Spectral Einstein Code

Over the last decade, the observation of colliding compact objects (black holes, neutron stars) has taken a central role in the investigation of major open questions in physics and astronomy: How do densely packed neutrons and protons interact? When do they split into their quark and gluon components? Where are heavy nuclei such as gold and uranium created? How well does Einstein's theory of general relativity work? How can we explain the brightest signals that we observe in the Universe, and use them to explore these fundamental questions? To leverage the remarkable observations of these systems made by the LIGO gravitational-wave detectors and a broad range of electromagnetic telescopes, and to answer these questions, reliable theoretical models of the observable signals from colliding black holes and neutron stars are required. While current models of gravitational wave signals are sufficient for the analysis of existing observations, they will be a major limiting factor in analyzing results from next-generation detectors. On the electromagnetic side, the situation is worse: even existing observations cannot be fully explained by current models. This award focuses on computational modeling of these systems. Its specific aims are to, first, provide high-accuracy templates of the gravitational wave signals powered by black hole-neutron star mergers and, second, to develop a new pipeline to predict the optical and infrared signals generated by these systems. Additionally, this award will fund the development of a new code infrastructure to leverage next-generation high-performance computing hardware to simulate black hole-neutron star systems. This award will fund one graduate student and two summer undergraduate projects at the University of New Hampshire, training junior scientists in the use of high-performance computing and modern, collaborative code development. This award thus contributes to the development of the STEM workforce in an EPSCOR jurisdiction.

The first project will produce a new suite of simulations of black hole-neutron star mergers using the general relativistic SpEC code. SpEC is a particularly powerful tool to perform at a low computational cost, the long, high-accuracy simulations of merging compact objects needed for this project. The systems to simulate will be chosen using a greedy algorithm to sample the parameter space of black hole-neutron binaries with aligned spin black holes in such a way as to allow the construction of a surrogate model for these binaries. Beyond the construction of that model, the waveforms produced by this award will play an important role in the calibration of gravitational wave models of black hole-neutron star systems. Very few simulations of these systems starting more than 3-4 orbits before merger are available today. The simulations to be performed within this award will be 10-15 orbits long, allowing matching of the numerical waveforms to analytical waveforms valid earlier in the evolution of the system. For the second project, this award will fund the development of a pipeline between the SpEC merger code and the Sedona code, a state-of-the-art radiative transport code that specializes in the modeling of UV/optical/infrared signals in the matter ejected by astrophysical explosions. This SpEC-to-Sedona pipeline will provide a powerful tool to test the impact of input nuclear and neutrino physics on kilonova lightcurves, and will allow for the public release of electromagnetic lightcurves directly generated from the 3D outflow geometry and composition obtained from SpEC simulations. This award will also fund the development of the methods needed to simulate black hole-neutron star mergers in the next-generation Spectre code, to allow simulation of these systems scaling to tens of thousands of CPUs.